Braids, Links, and Mapping Class Groups; New York, NY; March 15-20, 2005

A conference entitled "Braids, links, and mapping class groups"
will be held on March 15-20, 2005, at Barnard College/Columbia
University. The mathematics surrounding braid groups and mapping
class groups has long been important in low dimensional topology and
geometry. Studying actions of these groups on appropriate spaces is
yielding essential insights on deformation and rigidity of geometric
structure and elsewhere. The representation theory of these groups,
as initiated by Jones, has become a separate field with deep
connections to operator algebras. Braid group representations coming
from solutions to the Yang-Baxter equation are fundamental to the
theory of quantum groups, and provide many connections with physics.
Algorithmic questions, such as the word and conjugacy problems in
braid groups, serve as important examples in geometric group theory,
and have been applied to public-key cryptography.

Although these subjects have been widely studied since the 1975
publication of Birman's book of the same name, research on these
topics has been proceeding at an accelerating pace, in a multitude of
directions, and using diverse methods of study and application. The
conference's confirmed main speakers are some of the world's leading
researchers in the field, including the pioneers of these approaches.
The conference will provide a single forum for a comprehensive
meeting, which will promote cross-fertilization of research directions
and methods across diverse disciplines. An important goal is to
provide graduate students and young researchers with a coherent view
of this wide-ranging research area. The first two days of the
conference will be dedicated to introductory seminars and workshops
for graduate students and researchers who are new to this area. A
proceedings volume based on the conference will be a continuing resource
for researchers.